Dynamics of Nonlinear Differential Equations

PI: John Mallet-Paret, Brown University
DMS-0200178

Abstract:

We propose a fundamental study of qualitative properties of various classes
of nonlinear dynamical systems, in particular as they arise from differential
and difference equations. Among the systems to be considered are those from
ordinary and partial differential equations, systems of lattice differential
equations (that is, spatially discrete systems), differential delay equations,
and nonlinear maps on cones. Issues such as existence of equilibria and their
stability, spontaneous formation of spatial patterns and spatial chaos, and
existence and qualitative properties of traveling fronts, will be studied for
these equations. In addition to established techniques (both theoretical
and numerical) from differential equations and dynamical systems, a significant
portion of the proposed research involves the development and implementation
of new tools and techniques with which to study these systems. Among the
techniques to be employed are those involving singular perturbations,
invariant manifolds, exponential dichotomies, and topological methods (Morse
decompositions, fixed point theorems, degree theory).

We are developing new mathematical techniques for analyzing and understanding
differential equations and difference equations which arise as models in
various areas of science. Very broadly, these types of mathematical systems
model time-dependent or evolutionary behavior, as it occurs in a wide range
of scientific areas, including biology, chemistry, electrical circuit theory,
image processing, and material science. While this is a very broad scope of
inquiry, the specific problems to be studied exhibit features in common --
spontaneous formation of patterns, self-sustained oscillations, regulation by
internal feedback (often with time delays) -- which can be analyzed with some
of the basic tools of dynamical systems theory. It is expected the resulting
mathematical advances arising from these studies will increase the knowledge
of and will provide insight into both the abstract theory of dynamical
systems and the scientific areas of inquiry.